Special Project: U.S. Attendance at the 16th World Computer Congress (IFIP Congress 2000)

0001995
Aiken, Robert M
Shriver, Bruce D
Association for Computing Machinery

Special Project: U.S. Attendance at the 16th IFIP World Computer Congress (IFIP Congress 2000)

This award provides partial support for 20 representatives from the U.S. to attend the 16th IFIP World Computer Congress, in Beijing, China, August 21 - 25, 2000. The International Federation for Information Processing (IFIP) is a multinational federation of technical organizations concerned with information processing. The ACM and the IEEE Computer Society are full members of IFIP and the ACM is administering this project. The participants in the project are selected on a competitive basis by a committee of reviewers, with emphasis given to young researchers doing outstanding work and to applicants who have been accepted to present papers or are otherwise significantly involved in the conference.